University Support for High School Science Teachers

9553566 Epel This project is to provide high school biology laboratory exercises to teachers over the Internet. New mult-disciplinary protocols in biology and cell biology are to be developed, disseminated as supplementary materials and maintained on the World Wide Web and in other forms. The project is a model of how research laboratories can efficiently share expertise with the nation's educators. Concepts of scientific method and experimentation is to be taught through modules featuring sea urchin gametes, illustrating fertilization, cell physiology, cell division, embryonic development, biochemistry, speciation, and the interaction between organisms and their environment. Teacher support is to be by way of interactive tutorials and Web pages over the Internet.